BIOCOMPLEXITY-- INCUBATION ACTIVITY: Deeply Understanding Complex Systems through Relationship Analysis

EIA-0083758
Bieber, Michael
New Jersey Institute of Technology

Title: Biocomplexity: Deeply understanding complex systems through relationship analysis

This project is an incubation activity aimed at seeding a multidisciplinary group in biocomplexity research. Through preliminary collaborative work, this group has developed an approach for analyzing complex relationships in natural (biological and others) environments, in a way similar to those for analyzing complex computing and information systems. The goals of this project are to better understanding of this new approach and to test its extensibility from a single domain to multiple domains. The project will support the interaction and collaboration among several faculty members, graduate students across several institutions. A center piece of the project is the holding of two workshops that bring together researchers from various disciplines within the biological, physical, and social sciences. The outcomes of this work will contribute significantly to the enhancement of the project team for future research and education in biocomplexity.